Periodic Orbits of Hamiltonian Systems, Cobordisms and Geometric Quantization, and Poisson Geometry

DMS-0072202
Viktor L. Ginzburg

The present proposal focuses on several long-term projects
and continues principal investigator's previous work funded
by an NSF grant. The first question addressed in the proposal
is the Hamiltonian Seifert conjecture or, more specifically,
the existence problem for Hamiltonian dynamical systems without periodic orbits on a sequence of regular energy levels. The
Hamiltonian Seifert conjecture is closely related to the next
group of questions considered in the proposal. These questions
lie in the area of symplectic topology and concern the existence
of periodic orbits for Hamiltonian systems describing the motion
of a charge in a magnetic field. The second part of the proposal includes a series of problems in Poisson geometry. Among these
problems are, for example, the existence questions for equivariant Poisson moment maps and the construction of Poisson traces corresponding to the leaves of the symplectic foliation. A
general program relying on applications of equivariant cobordisms
to the study of Hamiltonian actions of compact groups is the
subject of the concluding part of the proposal.

Hamiltonian dynamical systems describe many classes of
physical processes in which dissipation of energy can be
neglected. For example, planetary motion in celestial
mechanics and some electro- or magneto-dynamical processes
can be, and usually are, treated as Hamiltonian dynamical
systems. One of the classical subjects in the theory of
dynamical systems is the study of periodic orbits
(i.e. cyclic motions). Periodic motion is the simplest
and most common type of motion after equilibrium.
It is believed that a vast majority of Hamiltonian systems
have periodic orbits. The first problem addressed in the
proposal is the construction of Hamiltonian systems without
periodic orbits. This is a question of considerable
importance for the theory of Hamiltonian dynamical systems
because examples of such systems would further advance our understanding of Hamiltonian dynamics. The next problem
concerns the existence of periodic orbits for Hamiltonian
systems describing the motion of a charge in a magnetic field.
This class of Hamiltonian systems naturally arises in
applications in physics and mechanics. However, few of the
extremely powerful general methods that have been recently
developed in symplectic geometry are applicable to this
class of systems. The investigation of these systems should
extend the limits of existing methods and result in the
development of novel ones. Other problems considered in
the proposal concern the study of connections between
geometrical properties of classical-mechanical systems
and certain quantum-mechanical phenomena.